U.S.-Germany Workshop: U.S.-German Frontiers of Science

0072933
Malin
This workshop award supports twenty junior researchers from the U.S. to participate in a German-American Frontiers of Chemistry workshop in Kloster Seeon near Munich, Germany. The purpose of the workshop is to bring together junior scientists in the area of chemical technologies. The meeting intends to establish a strong foundation for future research and to develop German-American scientific relations. This type of workshop is particularly important because relative to the 60s and 70s, fewer U.S. junior scientists are visiting German laboratories. Yet it remains important to share in the latest research practiced in Germany, particularly since Germany is at the cutting edge in certain subfields such as chemical synthesis, catalysis, molecular self-assembly, nanomaterials, functional polymers, and genomics.